Instrumentation for Undergraduate Laboratory Instruction in Engineering

Seven multi-use digital/measurement and control system stations are now in place through the recent acquisition of major system components including computers, analog/digital and digital/analog boards, 20 amplifier boards, oscilloscopes, printers and strip chart recorders. These stations are the main instrumentation teaching tools in the sophomore mechanical engineering instrumentation course, and are central to student instrumentation work in junior and senior mechanical engineering laboratories and in a senior controls course. A versatile tool is available for undergraduate students to gain experience with the intricacies of data collection, analysis and reporting. With the improved undergraduate laboratory curriculum, students are exposed to a wider variety of such experiences than was previously possible.